Continuous Measurements of Dust Concentration Along the Summit Ice Core

This award is in support of the second Greenland Ice Sheet Project (GISP II). The award supports the design, fabrication and testing of a 90 degrees laser-light scattering instrument (LLSI) for continuous measurements of dust stratigraphy along the GISP ice core that is being retrieved at Summit, Greenland. This will be correlated with ECM and oxygen isotope measurements and with reference horizons to establish the absolute chronology of the core.